Special Meetings: Annual Spring Institute in Noncommutative Geometry and Operator Algebras

Abstract
Bisch

This proposal seeks funding for the annual Spring Institute in Noncommutative Geometry
and Operator Algebras (NCGAO) for three years (2009-2011). The aim of each
school/conference is to bring together graduate students, postdocs and world-class
researchers in the areas of emphasis of the school and present introductory material and
recent developments in mini-courses held by leading experts. Since the number of
graduate students and postdocs attending the past NCGOA spring institutes has been
huge, the institute will have an enormous impact on noncommutative geometry in
particular, and on the US mathematics community in general.

Vanderbilt has hosted six annual Spring Institute in Noncommutative Geometry and
Operator Algebras since May 2003. The annual spring institute is a combination of spring
school and international research conference. It attracts typically over100participants
with more than two thirds students and postdocs. The topics vary from year to year and
cover a broad range of areas within noncommutative geometry and operator algebras.
The annual spring institute in NCGOA is directed by Alain Connes and organized by the
Center for Noncommutative Geometry and Operator Algebras at Vanderbilt.